Energetics of Complex Inorganic Materials

The goal of this research is to understand how microscopic interactions such as bonding, electronic states, order-disorder, vibrational density of states affect macroscopic properties (bulk thermodynamics) in complex inorganic systems, mainly crystalline oxides, perovskite, ilmenite and lithium niobate structures. High- temperature reaction calorimetry and structural and spectroscopic tools are used to explore why given structures exist. Emphasis will be placed on the energetics of the metastable materials, both crystalline and amorphous, and on radiation damaged and mechanically damaged materials. Ceramic processing will be examined as well from the point of view of energetics of intermediate phases formed.